Psychobiology Summer Research for Undergraduates

9731885 This program will offer summer research experiences in the field of Psychobiology at the University of Florida (UF). Applicants will be solicited by mailings to schools in the Southeast United States, with special emphasis on smaller and/or minority institutions at which students do not otherwise have an opportunity for significant research. Ten participants will be selected and will spend 12 weeks at UF (mid-May through early August). To facilitate group cohesiveness and interaction, they will be housed in an apartment residence on campus. Over the 12 weeks, each participant will complete a research project under the direct supervision of a faculty mentor. The primary faculty will give their time to this program; each has an active research program in psychobiology, with the range of emphasis spanning molecular and animal studies through cognitive neuroscience. In addition to the primary faculty, affiliated faculty, staff, and graduate students will be available to help the participants. Students also will attend a small-group tutorial to cover the essentials of biological psychology, as well as a periodic lecture for the group on topics including ethics, experimental design, and career development. They will learn communicative skills by preparing and presenting oral and written reports.